International Society of Developmental and Comparative Immunology for the Vth International Congress; to be held August 4-9, 1991 at Reed College

A remarkable variety of organisms inhabit the Earth. Regardless of their phylogenetic position, their survival depends on their capacity to adapt to their changing environments. Environmental pathogens are a part of that changing milieu. All animals and many plants display cell surface glycoproteins that serve in discrimination of self from non-self molecules. This appears to be a fundamental aspect of living cells and organisms. In addition to the ability to discriminate "self" from "foreign", organisms must possess protective mechanisms to contend with the plethora of potential pathogens and parasites in their environments. These defense responses may involve contact or short-range cell-cell interactions, or the synthesis and secretion of defensive molecules with agglutinating or lytic properties. The International Society of Developmental and Comparative Immunologists (ISDCI), which meets triennially as a Congress, is the only international organization of investigators dedicated to the study of defense mechanisms in the diversity of organisms in the greatly disparate phylogenetic groups inhabiting this planet. This proposal seeks support for the Vth International Congress of this society which will be held August 4-9, 1991 at Reed College in Portland, Oregon. The exchange of ideas and data at this international meeting will contribute greatly to the advancement of knowledge in this important area.